Collaborative NSF Sessions at the ASEE Annual Conference

Dissemination and assessment opportunities are established for current and potential NSF grantees in CCLI, CRCD, ATE, and Action Agenda programs at the 2001 and 2002 ASEE Annual Conferences. Events include a poster session and two NSF Showcases at each conference for grantees in each of the four programs. Selected presentations are published in the conference proceedings. Impact of this dissemination on promoting awareness of NSF programs and on stimulating new proposal submittals are assessed through a series of surveys directed at both presenters and attendees.